The Second China-Japan-USA Symposium on Advanced Adsorption Separation Science and Technology

This is a travel grant for a USA-China-Japan Symposium/Workshop on Advanced Adsorption/Separation Science and Technology. This workshop takes place in May 13-15, 1991, in Hangzhou, Zhejiang, China (People's Republic) and is organized by Profs. Ma (U.S.), Wu (China), and Suzuki (Japan). The workshop follows the first one, held in Sept. 1988 in the same place. The goal is to stimulate research, research interaction, and information exchange among scientists and engineers of the three nations. Adsorption/separation technology is very important in gas separation (air, water, pollutants, etc.) heavy metals, liquid pollutants, and biochemical (proteins, aminoaicds, etc.) The grant covers partial travel support for U.S. academic participants U.S. industrial researchers also participate and benefit from this workshop.